Molecular Dynamics Studies of Glassy States: Supercooled Liquids and Amorphized Solids

In this project in the Theoretical and Computational Chemistry Subprogram of the Physical Chemistry Program, Yip will investigate the molecular structure and dynamics of liquids and solids in various stages of vitrification and amorphization. Time correlation functions of local density, momentum, energy, and stress will be studied and combined with thermodynamic, structural, transport, and viscoelastic properties to provide a unified molecular description of glassy states of matter. Molecular dynamics and Monte Carlo simulations will be carried out to study model systems of liquids and crystals composed of one and two atomic species which have been perturbed under well-characterized thermal, stress, or irradiation environments. The simulation results will be used to test current theories, elucidate and correlate different types of experimental data, and motivate new theoretical descriptions of supercooled liquids and amorphized solids. Of particular interest is a temperature region in supercooling which is distinctly above the conventional glass transition point and where a dynamical crossover apparently occurs.